A Workshop on Future Directions of Research in System Theoryand Applications, September 18-20, 1986; Santa Clara, CA

The School of Engineering of Santa Clara University, in cooperation with the IEEE Control Systems Society, will hold this workshop to explore research directions in Systems Theory and Systems Engineering. The objective of the workshop is to identify research areas where system theory and systems engineering can make major contributions in the next 5 or 6 years. The emphasis of the workshop will be to identify and elaborate those methods and developments that promise to have an impact on multidisciplinary area. A diverse group of approximately fifth researchers directly or indirectly involved in systems work will be brought together in an informal but structured enviornment where past accomplishments, present investigations, and speculations on new directions can be combined to identify the most promising opportunities for future research.